Neolithic Voyagers-Inter-Disciplinary Investigations at Ais Yiorkis and the Colonization of Cyprus

With National Science Foundation support, Dr. Allan Simmons will conduct two seasons of archaeological investigation into the initial colonization of the Mediterranean island of
Cyprus,. For many years, scholars considered the Mediterranean islands as
late recipients of human occupation. Cyprus, however, had the earliest
evidence, with most data pointing to the founding of the first villages during
the later Neolithic period, around 6,000 B.C. The Neolithic, the transition
from hunting and gathering economies to those based on food production, first
occurred on the Near Eastern mainland about 9,000 B.C. and thus the colonization
of the Mediterranean islands was seen as relatively late. Furthermore, the
island Neolithic was characterized as a nondescript counterpart of its
mainland ancestors, often regarded as little more than a footnote in the wider
Neolithic world. Research at Ais Yiorkis challenges this perception.

Recent discoveries on Cyprus demonstrated an initial occupation around
10,000 B.C., which likely resulted in the extinction of native Pleistocene
fauna such as the pygmy hippopotamus. Other research has extended the
chronology and scope of the actual Neolithic colonization of the island by
about 1,000 years. This newly defined phase, the Cypro-PPNB, presently
consists of a handful of sites, of which Ais Yiorkis is one. Research at the
settlement is oriented towards understanding why it is atypical from other
Neolithic sites. First, it is located in the uplands rather the coastal area,
where nearly all other sites are situated. Second, it contains a
technologically and typologically sophisticated artifact assemblage, including
imported obsidian artifacts. Third, although it does not appear to be a
village, it contains a large circular stone structure unlike anything
previously found in the Cypriot Neolithic. Finally, economic data suggest a
far more wide ranging subsistence base that previously suspected. This
included the limited presence of cattle, which had not been documented until
the much later Bronze Age. Cattle also have recently been reported from
another Cypro-PPNB site, thus these animals appear to have been part of
the "Neolithic Package" that accompanied the island's first colonists.

This research will establish base-line data for the newly defined Cypro-PPNB period. The project will test models related to variability in the early permanent occupation of Cyprus
which is now known to be far more complex than initially believed. In
particular, the research examines both the nature of an upland occupation and
the economic, and possible ritual, impact of cattle in the early Neolithic of
the island. The work contributes to a better understanding of the trajectory of how early food producing societies spread throughout the Mediterranean area during the tumultuous "Neolithic
Revolution." It is now clear that Cyprus was an active participant in this event much earlier than believed.

The Neolithic resulted in both the establishment of the Mediterranean agro-pastoral economic pattern and the ecological degradation associated with food production and high population
densities that is still being felt in the region today. It is, therefore, a
relevant research issue with contemporary significance. Both Cypriot and U.S.
students will join the project, thereby gaining valuable research
experience. Archaeology students from the fledging University of Cyprus will
be encouraged to participate, enhancing joint participation between the U.S.
and Cyprus.